Interactions Between Random Matrix Theory, Number Theory and Combinatorics

Gamburd Abstract Proposal #0501245

The principal investigator plans to pursue two projects devoted to
the study of interactions between random matrix theory, number
theory and combinatorics. In the first project, building on his
recent joint work with Persi Diaconis and with Brian Conrey,
the principal investigator will explore connections between the
distribution of the secular coefficients of random matrices, the
conjectures of Conrey, Farmer, Keating, Rubinstein and Snaith
for moments of L-functions, and some classical problems in
enumerative combinatorics related to counting magic squares.
The second project of the principal investigator is devoted to
studying from a unified point of view one of the main problems in
the theory of expander graphs and one of the basic conjectures in
the theory of quantum chaos. A basic problem in the theory of
expander graphs, formulated by Lubotzky and Weiss, is to what
extent being an expander family for a family of Cayley graphs is a
property of the groups alone, independent of the choice of generators.
For many natural families of groups, in particular, for special linear
group of order two, numerical experiments indicate that it might
be an expander family for generic choices of generators
(Independence Conjecture). A basic conjecture in Quantum Chaos,
formulated by Bohigas, Giannoni, and Shmit, asserts that the
eigenvalues of a quantized chaotic Hamiltonian behave like the
spectrum of a typical member of the appropriate ensemble of random
matrices. Both conjectures can be viewed as asserting that a
deterministically constructed spectrum generically behaves like
the spectrum of a large random matrix: in the bulk (Quantum
Chaos Conjecture) and at the edge of the spectrum (Independence
Conjecture). The principal investigator will work on proving these
conjectures in the context of the spectra of elements in group rings.

Random Matrix Theory originated in Wigner's suggestion in the
early fifties that the resonance lines of heavy nuclei might be
modelled by the spectrum of a large random matrix. In the ensuing
fifty years the scope and depth of Random Matrix Theory has
dramatically increased; in the past decade the subject has
undergone explosive growth. The first project of the principal
investigator aims at forging a link between two recent lines of
development in Random Matrix Theory. One is the discovery and
exploitation of the connections between eigenvalue statistics and
the longest-increasing subsequence problems in enumerative
combinatorics; another is the outburst of interest in
characteristic polynomials of random matrices and associated
global statistics, particularly in relation with the moments of
the Riemann zeta function, a function of fundamental importance in
number theory. The second project of the principal investigator
is devoted to studying connections between random matrices and
expander graphs -- highly connected sparse graphs that efficiently
propagate information quickly to many nodes along short paths. Recent
explicit constructions of such graphs have created an explosion of
interest in their potential applications to network design, complexity
theory, coding theory and cryptography. These constructions are algebraic
in nature, and provide a beautiful example of how abstract, seemingly
unrelated topics in number theory, group theory and combinatorics
can be elegantly combined to solve an important real-world problem.